Large-Scale Reform in K-12 STEM Education: Looking at What is Known

The NRC proposes to hold a one-day workshop focused on the lessons learned from past large-scale reform initiatives in STEM and apply that knowledge to the myriad state networks currently underway as a result of the increased national focus on STEM education. The role of networks in identifying, scaling up, and sustaining STEM reforms is critical as states move quickly to identify strategies and approaches that will be useful in Race to the Top proposals. The proposal is an appropriate RAPID because the findings generated from the workshop will be used by the field, US Department of Education and NSF to advocate for approaches with the strongest evidence base in a policy environment that is both shifting and moving quickly.